The Dallas Urban Systemic Proposal

The Dallas Urban Systemic Program (DUSP) submitted by the Dallas Independent School District (DISD) builds on a previous Urban Systemic Initiatives (USI) project and plans to expand its successes and implement new initiatives to improve mathematics and science education for all students. The DISD, with strong support from institutions and businesses, has been engaged for five years with the National Science Foundation to improve the teaching and learning of science, mathematics, and technology (SMT). Components identified for more extensive deployment include: (1) K-12 standards-based SMT curriculum;
(2) implementation of exemplary programs; (3) classroom accreditation standards and procedures;
(4) community and parental support; and (5) institutionalization through strengthening of the current infrastructure. Critical new thrusts encompass: (1) early childhood education strategies; (2) strong minority participation; (3) SMT classroom measurement loop; (4) graduate student tutoring and mentoring; (5) K-14 job skill initiative; (6) K-16 collaboration with universities to improve teacher preparation programs; and (7) research activities with colleges, universities, and businesses.